Function Theory on Varieties

Abstract:

The main goal of the project is to find the conditions on an
algebraic variety that guarantee good estimates for analytic functions
on the variety in terms of their values at real points. Particularly,
it is concerned with estimates analogous to those of the
Phragmen-Lindelof theorem which gives uniform upper bounds for
pluri-subharmonic functions that are bounded above at the real points
of the complex Euclidean space and satisfy an asymptotic linear growth
rate. A new geometric condition, that the variety is nearly
hyperbolic, is proposed to characterize such properties. The new
condition gives a precise sense in which the variety has many real
points, and is intermediate in strength between having a full
dimensional set of real points and admitting a projection map with
real fibers over real points.

The project aims to determine the geometric properties of
algebraic and analytic varieties in Euclidean space that determine
when the analytic functions on the variety have properties similar to
those of entire functions on Euclidean space. It is motivated by
connections with the properties of solution operators for systems of
constant coefficient partial differential operators and convolution
operators on global smooth functions. The goal is to give algorithms
for deciding whether or not specific operators admit solutions and
solution operators on spaces of infinitely differentiable functions
and distributions. The study uses methods from and contributes new
results to pluri-potential theory, the area whose relationship to
analytic functions of several complex variables is the analogue of the
relationship of classical potential theory to the theory of analytic
functions of one complex variable.